Computer Assisted Calculus: Using Technology to Promote Active Learning in the Community College

t9451023 Steen Santa Fe Community College is establishing two computer laboratories for mathematics instruction and providing computer equipment for several mathematics classroom. They are revising the mathematics curriculum, beginning with the calculus, to emphasize conceptual understanding and problem solving. Initially, the project is impacting 1,100 students per year with the potential of serving more than 3,000 Calculus, Differential Equations, Statistics, and Precalculus students per year. A laboratory component is an essential part of the plan. This mathematics initiative is designed to motivate students for success and stimulate an interest in calculus by emphasizing collaborative team learning, discovery-based learning, and practical application models. The laboratory component is providing visual reinforcement of mathematical concepts and encouraging student exploration and experimentation through open-ended exercises. Instruction emphasizes solution strategies, modeling skills, and mathematical reasoning. They are also promoting the development of students' verbal and written communications skills through laboratory reports. These student writings foster the ability to explain the practical significance of application problems and their solutions. An ongoing formative evaluation is an integral part of the development process and is guiding them throughout the implementation of the grant. They are collecting and analyzing data on the effectiveness of the laboratory team approach. Participating faculty are developing computer-interactive laboratory assignments.